Howard/Hopkins/Prince George's Community College - Partnership for Research and Education in Materials

Howard University, the Johns Hopkins University (JHU) and Prince Georges Community
College (PGCC) are joining together in this Partnership for Research and Education in
Materials (PREM). The shared goal is to systematically identify and support students from
under-represented minority communities. The PREM project will enable them to a)
envision, b) train for, and c) begin materials science and engineering careers. Each step is
as important as the next. The PREM team combines sophisticated approaches for
advanced materials science and engineering research with demonstrated success in
recruiting, supporting and training African-Americans for materials related careers.
Scientific training occurs in the context of research. The PREM team will study nanowire
growth and phenomenology in three areas which join together established research efforts
in the JHU Materials Research Science and Engineering Center (MRSEC) and at Howard.
They are 1) transport properties in Bi nanowires; 2) transport properties in InN nanowires;
and 3) fabrication of dipolar nitride nanowires for nonlinear optical elements. The PREM
will assist Howard's efforts to better integrate its primarily African American student body
into the international research community and improve its materials education
infrastructure. The PREM will provide Howard undergraduates summer research
opportunities at Hopkins and graduate students will be able to do a significant part of their
research in the Hopkins MRSEC. There will be co-advising of Howard PREM students by
Hopkins MRSEC PIs, and pairing of senior JHU MRSEC students as preceptors with
Howard PREM students. Hopkins will benefit when well-prepared Howard graduates
enroll. PGCC students involved in PREM activities will have opportunities for summer
research at Howard. PGCC and Howard have an existing articulation agreement, which
the students can use to continue their studies. PREM support for materials education at
Howard and PGCC will improve interdisciplinary materials education. Few freshmen know
what materials science or engineering is. This is even more the case for community
college students who tend to come from minority communities or are first in their family to
attend college. PGCC has designed web based guided inquiry courses which are not only
effective ways of teaching science but also a good introduction to research. PGCC will
take the lead in producing materials centered, guided-inquiry software suited to college and
high school classes. Broad dissemination of the modules will inform students about the
impact materials have on their lives and attract them to materials related studies. The webbased
modules can be used for undergraduate courses and by high school students taking
AP courses. This PREM will build a pipeline for materials research careers among African
Americans.